On the Fractal Structure of Rain in the Time Domain

The explicit modeling of rain and all its applications, such as basin.scale hydrology, require complete description of the structure of the rain field in both space and time; an accurate determination of the temporal and spatial scaling parameters is therefore important. Previous research in the spatial domain suggests that the rain field exhibits an anisotropic scaling characterized by an elliptical dimension of about 2.22. Under this project, Professor Tsonis will extend the fractal analysis to the time domain. The analysis will provide necessary scaling parameters for characterizing the evolution of rain and will also serve as a direct test of Taylor's hypothesis of "frozen turbulence".